Research Experiences for Undergraduates in Chemistry at the College of Wooster

Professor Theodore R. Williams and other members of the Chemistry Department of the College of Wooster are being supported to continue a Research Experiences for Undergraduates (REU) site in Chemistry. For the period 1990-92, nine (9) students will spend ten (10) weeks each summer actively engaged in a variety of research projects. Projects range from developing methods of analysis for water in ocular tissue to investigation of conformational behavior of substituted alkanes. Students will be required to present two seminars and prepare a journal quality report of their summer progress.